Periodic Stochastic Processes

The investigator will study several stochastic process problems in
settings where the observations have a periodic structure. These problems
include 1) assessing whether or not two periodically stationary time
series have the same dynamics, 2) the development of models for count
series in a periodic environment, and 3) assessing trends in periodic
storage processes. To do this, the investigator will investigate periodic
versions of some classical Markov chain, renewal process, and time series
models. Parameter estimation procedures for the developed models,
including issues of parsimony, will be studied.

Most processes observed in everyday life --- tides, temperatures, gasoline
prices --- have a seasonal (periodic) component. This research will
develop rigorous statistical procedures to analyze several types of
periodic data. The applications are aimed at answering several climate
change questions including 1) are Atlantic Basin hurricane counts
increasing (periodic series of counts)?, 2) are daily snow depth series in
the United States showing change (periodic storage processes)?, and 3) can
the climate record from two neighboring towns be declared the same or are
the two localities different in some aspect (equivalence of periodically
stationary time series dynamics)?